Quantum Cohomology, Quantum K-theory, Frobenius Manifolds and Integrable Systems

Abstract

Award: DMS-0305895
Principal Investigator: Yuan-Pin Lee

The main focus of this project is to study Gromov--Witten theory
and its relations and applications to other areas of mathematics,
including enumerative geometry, integrable systems, K-theory, and
representation theory. The emphasis is placed on some key
problems where these areas intersect. These problems include the
study of higher spin curves, quantum K-theory, enumerative
geometry, and Frobenius manifolds.

Gromov--Witten theory was born in early 1990's through the
interaction of mathematics and physics. On the mathematical side,
it starts with Gromov's invention of a new way to produce
symplectic invariants. On the physical side, it was Witten's
study of string theory. Although of a relatively short history,
Gromov--Witten theory is a major active field of research. This
is due not only to its powerful solutions to old problems, but
also to its interdisciplinary nature, with continuing inputs from
several fields of mathematics and string theory. This project
proposes to investigate Gromov--Witten theory through various
perspectives and to search for its applications in other subject
areas.